Acquisition of a Nuclear Magnetic Resonance Spectrometer

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at Michigan Technological University acquire a 300 MHz NMR Spectrometer. The research activity to be supported includes: areas of synthetic organic chemistry, natural product chemistry, bioorganic chemistry, ceramics synthesis, physical chemistry, and polymer chemistry. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.